Center for Minorities in Information Processing Systems

This grant provides infrastructure support for the development of the research and educational activities of the Center for Minorities in Information Processing Systems at the City College of CUNY. The support includes computing and VLSI laboratory equipment and software, undergraduate and graduate student assistantships, faculty release time, and student tutoring. The principal investigators will conduct research in (1) image analysis, (2) simultaneous projection algorithms for set-theoretic signal recovery, (3) automata, group representations, and Fourier transforms, (4) parallel algorithms for computer vision and Monte Carlo methods, (5) VLSI implementations, (6) a transformation kernel for parallel programming, and (7) image warping. Educational activities include the restructuring of special sections of the first course in computer science as "collaborative learning communities" as part of an innovative approach to problem solving and software design.//